Doctoral Dissertation Research: Second Cities: Globalization, Institutions and Political Culture in Struggling Regions

This doctoral dissertation research examines the distinct patterns of global integration of "second cities" as opposed to global cities, and assesses the impact of these integrative patterns on local, second city politics. Recent research on globalization and cities assumes rather than demonstrates that globalization is a new, historically unique phenomenon which forces unwelcome political choices on cities. It also focuses too much on top-tier financial metropolises, like New York and London. The researcher will conduct comparative case studies of international networks and of local political culture in two second cities, Philadelphia (US) and Manchester (UK)-arguably the most prominent industrial cities in each country. Each city will be examined in two periods, 1880-1910 and 1970-2000. Data sources will include directories of corporate ownership, newspapers, records of public and non-profit agencies, and interviews with public officials and immigrant leaders. From these, the researcher will construct databases of economic and political activity, and narratives of shifts in local politics. Results from each city will be compared against each other, and also compared as a group with existing literature on global cities. The dissertation will contribute to an improved understanding of globalization in three ways. Empirically, it extends the literature on globalization and cities by considering second cities and their global interurban networks. Theoretically, the dissertation combines political economic with cultural approaches to globalization. Practically, the study advances understanding of globalization's impacts on local politics and notions of social membership.